U. S.-Germany Cooperative Investigation of Interfacial Mass Transport in a Biofilm System

This award provides partial support for a long term visit by Professor Slawomir W. Hermanowicz, University of California at Berkeley, to the Institute for Water Quality Control and Waste Management of the Technical University of Munich, Germany. There he will collaborate with Dr. Peter A. Wilderer in the area of mass transfer and hydrodynamics in biofilm systems. Dr. Hermanowicz has been investigating microbial attachment to and growth on surfaces, with a primary emphasis on dilute systems. His goal is to develop a novel method for assessing biological growth in dilute systems such as drinking water distribution networks. This research will be greatly enhanced by a capability to measure fluid hydrodynamics near the surface and the effects of surface topography on mass transport of particles such as bacteria. Dr. Wilderer is a world expert in biofilms, with particular expertise in biofilm structure and ecology. He is currently researching the effects of biofilm surface morphology on mass transfer. During this long-term visit, Dr. Hermanowicz will benefit from this expertise and will gain experience in the application of Laser Doppler Anemometry to the measurement of interfacial transport properties in biofilms. Biofilms are formed by microorganisms which attach to surfaces. They are ubiquitous in many natural and engineered environments, such as groundwater aquifers, tooth surfaces, drinking water pipelines and ship hulls. The role played by the dissolved and particulate components in these systems is poorly understood. A better understanding of the growth and stability of these films would have applications in industrial processes, environmental research and any field which adhesion of cells or particles is important.